Mathematical Models of Foraging Seabirds

The spatial dispersion and foraging movements of seabirds around South Georgia will be examined as to prey dispersion and environmental heterogeneity. Mathematical models of foraging and dispersal developed initially for insects will be extended and modified for seabird aggregation, movement and foraging. Both the insect and seabird systems involve mobile consumers that seek highly aggregated resources. The application of behavioral-based modeling to seabirds will explain patterns at the population and ecosystem levels. Such a mechanistic approach to analyses of distributional data has not previously been attempted with seabirds. The results should substantially improve the interpretation of spatial data on seabirds taken at sea. To construct models, data collected on a series of radial transects around Bird Island, South Georgia, during the nesting season will be used. To test the models, additional transects at South Georgia in the austral winter, concentrating on two species with different diets, the Common Diving-Petrel and Kerguelen Petrel, will be conducted. Spatial patterns between species using two-dimensional spectral analysis will be described and behavioral decisions of individuals will be linked to spatial dispersion of populations using spatially based models of partial differential equations.